GANGES -- A Planning Grant

This is a planning grant to Independent Broadcasting Associates, Inc. to enable them to obtain and evaluate scientific data about the ecological condition of the Ganges river in South Asia in preparation for a series of documentaries for National Public Radio. The series would combine both science and humanities to consider the meaning of the river in terms of the broad continuum of the Ganges ecosystem.

During the planning stage, the PI will:

review published literature and determine whether relevant unpublished information is obtainable;
screen the obtainable information on the ecological condition of the Ganges/Padma river and identify major causes of the degradation of the river; contact relevant government related bodies within India in order to locate suitable experts and written reports; establish relationships with and conduct interviews amongst relevant non-governmental parties including scientists, industrialists and agriculturalists in order to facilitate future interactions for the purpose of producing the series ; and assess the suggestion that one of the problems with initiatives such as the Ganga Action Plan has been its reliance upon Western models -- both technological and conceptual -- which are often inappropriate to local conditions and realities.